Long Images Cores From High Latitude Shelves Bordering Denmark Strait

This ESH award will support participation in an international coring cruise on the Marion Dufresne to collect high-resolution cores from both sides of the Denmark Strait in the North Atlantic. The cores will be anlayzed fro numerous sedimentological parameters (including stable isotopes and assemblages of planktic and benthic foraminifera and rock magnetics) to reconstruct the local variability of sea ice and land/ocean interactions during the Holocene and the late Pleistocene at decadal to centennial time scales.